GridSolve: A System for Grid-enabling General Purpose Problem Solving Environments

The purpose of GridSolve is to create the Middleware necessary to provide a seamless bridge between the simple, standard programming interfaces and desktop scientific computing environments (SCE) that dominate the work of computational scientists and the rich supply of services supporting by the emerging Grid architecture. Users of scientific computing environments can easily access and reap the benefits of shared processing, storage, software, data resources and so forth, by using GridSolve. Gridsolve will be build upon the work done earlier on NetSolve software. The work will lead to a new RPC mechanism Grid RPC, will provide client interfaces for key general purposes SCEs, will ensure that GridSolve can bind to and utilize all major Grid backends, will adapt GridSolve to use existing Grid services (security, resource monitoring) ,and will provide support for flexible state management and data logistics through the use of distributed storage resources.

Gridsolve is based on a substantial base of NetSolve software, and draws upon knowledge and experience using NetSolve with a variety of Grid environments and applications. The effort will make tools like Matlab and Mathematica work on the grid, with the result that grid technologies and capabilities will be useful to an even broader base of scientists and researchers.